An Economic Framework of Total Functional Value for Buildings

Potential improvements in facility performance, a multi-level performance "cascade" from the functional and environmental performance, to the performance of operating and physical systems, must be evaluated within a framework of relative economic value and resource allocation reflecting long-term cost/benefits. Some building systems directly affect functional performance and Functional Use Costs. Functional Use Costs are primarily human costs and constitute the largest component of total organizational cost. This proposed research will develop a conceptual and representational tool, an economic framework expressing the relative affect of performance improvements on the Total Functional Value, focussing on the work environment. Two performance classes for elements of building systems will be identified and developed in relation to their potential affect on functional use costs; their relative economic sensitivities to affect ultimate value will be quantified. A functional use data base will be generated by two levels of surveys. Quantitative and qualitative descriptors will be developed in graphic and computer representations. An existing life cycle costing computer program will be expanded to include functional use costs on ASTM standards. This research will provide building professionals and other decision makers with a theoretical and working model, demanding interdisciplinary consideration of comprehensive value and identifying immediate applications, targets for effective development, and priorities for future research.